Sputtering Facility for Undergraduate Students

The Department of Physics at Indiana University of Pennsylvania will purchase a sputtering system and associated equipment which will become a part of a new high vacuum system. The present system, purchased with local funds, contains resistive heating and electron beam evaporators. The addition of the sputtering system will allow students to learn about this important technique and to study properties of amorphous thin films, properties of optical coatings, the preparation of interesting Hall effect films, the fabrication of semiconductor devices, and to use materials which have not been accessible with present techniques.